Problems in Mathematical Physics

PI: Barry Simon, California Institute of Technology
DMS-0140592

Abstract

Professor Simon will continue his research focusing on direct and inverse
spectral problems for Schrodinger operators and their discrete analogs. He
plans to explore the impact of sum rules for spectral theory both for Jacobi
matrices (where he and Killip recently solved several long open conjectures
from the Orthogonal Polynomial community using sum rules) and Schrodinger
operators. Other problems he expects to look at include the structure of
the isospectral manifold for problems with discrete spectrum, resonance
counting in higher dimensions, and the study of mixed singular continuous
and point spectrum.

A fundamental problem in wide swaths of science is determining the relation
between some object that can only be observed indirectly and the information
you can observe indirectly. There are two sides of issue: determine what
is indirectly observed for a given state of the system, called the direct
problem, and trying to induce properties of the system from the indirect
observations, called the inverse problem. Professor Simon will study
various aspects of direct and inverse problems in quantum mechanics. While
the focus will be on the equations of quantum theory, there are potential
spinoffs to tomography and radar/sonar direct and inverse problems.